Renewal Request for Existing Center for Silicon Wafer Engineering and Defect Science (SiWEDS)

The SiWEDS Center works closely with the industry member scientists and engineers, carries out a unique multi-university program of research in silicon materials. They provide critical materials physics and chemistry solutions that increase the yield, performance, and reliability of silicon materials and devices used for Giga Scale Integrated Circuits. The SiWEDS targets areas with great potential for true long-term breakthrough on the one hand, coupled with near term payoffs on the other. This multi-university I/UCRC is led by North Carolina State University and involves the University of California-Berkeley, Arizona State University, University of Arizona, University of South Florida, University of Washington, MIT, and Stanford University.